Dental Microwear and Plio-Pleistocene Ceropithecoids

This project is a dental microwear analysis of over 8000 specimens of the Plio-Pleistocene cercopithecoid primates of East Africa. High resolution dental impressions will be taken of teeth from most of the major East African sites. Impressions will also be taken from museum collections of modern African monkeys. As in previous dental microwear analyses, epoxy casts will be examined under a scanning electron microscope (SEM); measurements of the size, shape, and orientation of microscopic wear features will be computed from SEM micrographs; measurements of macroscopic wear patterns will be computed with a three- dimensional measuring microscope; and all measurements will be used in statistical comparisons within and between modern and extinct taxa. The study of dental microwear is one of the promising new techniques for obtaining detailed information on the diet of fossil animals and humans. This analysis should lead to new insights into (1) the methodology of dental microwear analysis, (2) the phylogenetic change and adaptations of the Plio- Pleistocene cercopitheoid primates, and (3) the paleo-ecology of the early hominid fossil sites of East Africa.